CCLI: Developing Grand Challenges Nanobiotechnology Laboratory Experience for Sophomores

Engineering-Other (59)
This project creates inquiry-based laboratory modules to expose students to nanobiotechnology and increase specific skills in nanomaterial synthesis and characterization. The specific topic areas of the modules are 1) nanopatterned antibacterial surfaces, and 2) creation and characterization of nanostructures for use in bioimplants. The topics areas are intentionally multidisciplinary to enable students to spend time on one scientific concept and learn several biology and nanotechnology laboratory techniques in one unit, and to encourage multidisciplinary team work. The goals of the modules are to increase skills in nanomaterial synthesis and characterization, develop experimental skills, augment student interest and confidence in pursuing the subject matter, and encourage students to pursue higher level nano-courses as well as research projects. The course is targeted to sophomores from across engineering and science.